Psychophysical Laboratories in Spatial Vision

The primary goal of this project is to develop laboratories that will give students of psychology, psychobiology, and related health sciences hands-on experience with state-of-the-art equipment and procedures to understand recent advances in the theoretical and applied use of the "Fourier-analysis" hypothesis of spatial vision. Under this project a visual-image synthesizer and small computer are requested so that laboratories involving psychophysical testing procedures with sine-wave grating stimuli can be developed. Students will learn to test human contrast sensitivity, to interpret the resulting contrast-sensitivity functions, and observe the effects of manipulating the conditions of testing. A set of demonstrations will be developed for use in non-laboratory oriented classes.